The Second Institute for Fundamental Theory Workshop "Yukawa Couplings and the Origins of Mass"; Gainesville, Florida; February 11-13, 1994

9400701 Ramond A physics workshop on "Yukawa Couplings and the Origins of Mass" will be held February 11-13, 1994 at the University of Florida. The workshop will address the question of the origin and the observed pattern of the masses of the elementary particles. The question is a great puzzle, and discussion among experts, which the workshop is designed to encourage is very important. *** ! ! B 3 Times New Roman Symbol & Arial 1 Courier " h Ql Ql C R:\WW20USER\ABSTRACT.DOT Denise Henry Denise Henry